Support for the Fifth Metabolic Engineering Conference

Liao
0411272

This international conference will provide a forum for scientists and engineers in
Metabolic Engineering and related areas to share progress, discuss challenges, and debate issues. It will focus on the theme of systems integration: from genome to product. Highly innovative Metabolic Engineering research presentations and posters from both industry and academia will be invited. This international conference will build on the success of previous conferences (ME-I to ME-IV). After more than a decade, the field of metabolic engineering has evolved and developed into a major thrust area across engineering and biology. In particular, the advent of genomic analysis and high throughput analytical methods has made it possible for the first time to begin a large scale integration of metabolic and regulatory information. The field of metabolic engineering has taken advantage of this progress and made significant contributions to Systems Biology. ME-V will provide a forum for discussing new developments in fundamental and applied aspect of Metabolic Engineering and Systems Biology.